Conference on Stochastic Control with Partial Observations
and Financial Models of Incomplete Markets

DMS-9813557

Conference on Stochastic Control with Partial Observations and
Financial Models of Incomplete Markets

Organizers: Kurt Helmes, Richard H. Stockbridge
University of Kentucky

Abstract

In recent years the importance of stochastic analysis and stochastic
control theory in financial applications has become apparent. The best
known example is the Black-Scholes option pricing formula which has
spawned a $15 trillion industry in options trading. The significance
of this connection is demonstrated by the work of the 1997 recipients
of the Nobel Prize in Economics, Professors Robert Merton and Myron
Scholes. One of the crucial assumptions which underlies the theory of
Black, Merton, and Scholes is that full information is available about
the markets. Markets for which this is true are known as complete
markets. Current research concentrates on incomplete markets.
Incompleteness of the markets corresponds to partial observations in
stochastic control theory. Recent advances in the theory and numerical
approaches for these type of problems make it desirable to bring
together leading specialists from academia and research groups of
financial institutions. This is even more imperative since very often
in the past efforts within academia have been expended on finding
highly technical answers to the wrong questions. This conference will
include practitioners who are well-acquainted with the sophisticated
mathematics used in mathematical finance to present to the academicians
the real issues and problems of interest to the financial industry.